Communications and T-Cell Design for the FFP Machine: A Cooperative Research Project with the University of North Carolina.

The Formal Functional Programming (FFP) machine is a novel computer architecture that has the potential of combining high performance with programming ease and flexibility. It is a direct implementation of a reduction model of computation. Program decomposition, task allocation, synchronization and scheduling are efficiently automated in the FFP machine, and therefore are removed from the programmer's concern. The primary objective of this research is to design the asynchronous T- cell component of the FFP machine, and to coordinate the specification and design of parts of the system. The secondary objectives are to use the experience of collaborating on the FFP machine design to challenge the asynchronous methodology as well as to help refine it, and to apply the FFP machine to scientific problem solving. This is a collaborative effort with Gyula Mago of the University of North Carolina. The program director considers the FFP machine to be a truly novel computer. Dr. Molnar is a recognized expert in asynchronous logic, and is uniquely qualified to design and build the T-cells that are essential to the success of this combined research effort. The program director strongly recommends funding this proposal.